NGS: Collaborative Research: SmartApps: An Application Centric Approach to High Performance Computing

EIA-0103741
Josep Torrellas
University of Illinois

NGS: Collaborative Research: SmartApps: An Application Centric Approach to High Performance Computing

The objective of this proposal is to develop new methods that allows runtime performance optimization by an enhanced monitoring, resource modeling, evaluation and remapping of the application at runtime, depending on runtime resources and application performance. The specific approaches to be pursued include application algorithm adaptation, run-time software optimization, system configuration selection and tuning reconfigurable OS services.